Undergraduate Design Projects

0201736
Barrett
The purpose of this project is to provide a meaningful design experience for University of Wyoming, College of Engineering students that will directly aid individuals with disabilities within the state of Wyoming. This activity will provide a vital link between the University's talented students and individuals with assistive technology needs. Students will create and provide prototype, custom designed devices that will enhance the quality of life for the individual. Also, this program will educate new design engineers on the special needs of community members with disabilities.

The project has the following objectives:

Provide engineering students a multi-disciplinary, meaningful, community service experience

Provide persons with disabilities assistive devices to empower them to achieve the maximum individual growth and development and afford them the opportunity to participate in all aspects of life

Provide engineering students education and awareness on the special needs and challenges of persons with disabilities

Provide undergraduate engineering students exposure to the biomedical field of engineering.

The College of Engineering has partnered with three organizations that provide education and service related to disability. The organizations are the Wyoming Institute for Disabilities (WIND) assistive technology program, Wyoming New Options in Technology (WYNOT) and their Sports and Outdoor Assistive Recreation (SOAR) project along with the university's Special Education program. Individuals with disabilities will be linked with a team of engineering students to provide a prototype custom-designed assistive device specific to their needs.